Large-Scale Geometry of Hyperbolic Groups and 3-Manifolds

DMS-0204506
Bruce Kleiner

The proposal consists of two projects which are
motivated by the geometry of three dimensional manifolds.
The first project uses quasisymmetric homeomorphisms
as a framework to understand the asymptotic geometry
of hyperbolic groups. Several uniformization and
rigidity problems are discussed. The central problem
is Cannon's conjecture that a hyperbolic group with
boundary homeomorphic to the two-sphere is a lattice
in the isometry group of hyperbolic space. A resolution
of this conjecture would be a major step toward Thurston's
Hyperbolization conjecture. The second part of the
proposal addresses the Weak hyperbolization conjecture,
the other missing step in the proof of Thurston's conjecture.
The proposed attack uses geometry and dynamics of
surface laminations in three manifolds.

One of the major open problems in Mathematics is to determine
the possible shapes (topologies) that a three dimensional space
might assume. In the 1970's, Thurston formulated his famous
Geometrization conjecture, which is a precise statement about
how the classification of such spaces should look. The
proposal addresses a piece of Thurston's conjecture known
as the Hyperbolization conjecture. The general line of attack
is to associate a two dimensional self-similar fractal sphere
with each three dimensional space, and reduce the original
conjecture to showing that one can find "good" coordinate systems
for this associated fractal sphere.